CARE: A National Trace Collection and Distribution Resource

EIA9807619 John K. Flanagan Brigham Young University Experimental Systems: A National Trace Collection and Distribution Resource. Trace-driven simulation is an important technique for research in computer architecture and compiler design. A trace-driven simulation uses actual execution traces as input to a compuer system simulator that can estimate resource usage or execution time. If both the system model and the input trace data represent the system under test, trace-driven simulation can be very accurate. This project collects and distributes accurate and representative trace data from a variety of computer systems running various operating systems and application workloads. Trace data is collected using commercial logic analyzers and a previously developed hardware monitor, which has successfully collected traces with billions of addresses from a variety of machines. Once collected, traces are managed and stored using large disk arrays and automated tapes, and are made available to users through the World-Wide Web, on tape, and on CD-ROM.